Minority Graduate Research Honorable Mention - Monty Montano

This special award will give Ph.D. student Monty Montano additional flexibility in pursuing his graduate studies and research initiation in eukaryotic gene expression. This award will strengthen minority research participation in this area.